Topics in Parametric Optimization

TITLE: Topics in Parametric Optimization

ID: 9988348

PI: David Fernandez-Baca

ABSTRACT

Parametric problems are those whose input depends continuously on one or
more values. This award supports work in two fundamental areas in
parametric optimization. The first is fixed-dimensional optimization,
with special emphasis on problems whose objective function can be
efficiently evaluated at any point by a well-behaved algorithm. Problems
of this sort arise, for example, in Lagrangian relaxation. The main
question is to determine the conditions under which evaluation is as easy
as global optimization, within the context of Megiddo's method of
parametric search. The second area to be investigated is the construction
of parameter space decompositions yielding optimal solutions for all
parameter values. One issue is obtaining bounds on the number of regions
of the decomposition. This will be studied in part within a framework
that captures the essence of problems as diverse as stable marriage and
evolutionary tree construction. Another question is whether one can
accelerate the construction of the decomposition by exploiting structural
similarities between adjacent regions.